Development of an Efficient Transformation-Regeneration System for Soybean (Glycine max)

During the past decade, the transformation-regeneration of selected plant species has become routine and contributed to the production of improved plant products through genetic engineering. However, despite a large effort, an efficient system for transformation- regeneration has not been developed for the two most economically important groups of plants, cereals and legumes. This project represents a comprehensive and systematic effort to develop such a system for legumes, using soybean as a model experimental system. The investigators, an expert on soybean tissue culture and genetics and an expert in cell biology, will develop a transformation technology by identifying the cells participating in regeneration. If successful, such a technology will contribute directly to the genetic engineering of legumes, and indirectly to our understanding of the basic mechanisms of plant transformation.